LINDA Compiler and Communication Kernel for Parallel Programming on Hypercube-Connected Multicomputers

In every area of large-scale computing, solutions to a range of vitally important problems currently take too long, or cost too much, or are completely unattainable because of the limitations inherent in even the most sophisticated of today's serial or vector processing computers. As we reach the fundamental limits of hardware technology, any substantial increase in computational speed (and capabilities) must come from some form of parallel architecture. At present, however, the usefulness of these systems is severly limited by the lack of proper high-level parallel programming environments, and by the lack of knowledge of appropriate parallel programming techniques. Scientific Computing Associates is developing a parallel programming system based on Linda, a set of parallel process management operations that can be inserted into an existing serial programming language such as C or Fortran, and provide convenient access to parallelism from within a familiar high- level language. During Phase II they propose to extend and improve the performance of the C-Linda compiler, improve the user-interface aspects of the Linda programming environment, build Linda run-time systems for the Cray X/MP multiprocessor supercomputer and produce a marketable product for shared memory parallel architectures based on the Linda system. I recommend funding this proposal to the amount requested, and if possible, making the award in two increments to assure the viability of the project as suggested by one of the reviewers; the second half being contingent upon satisfactory demonstration of the ultimate product to be marketed.